PYI: Modeling of Three Terminal High-Speed Semiconductor Devices

The objective of this research program is to investigate the performance of new high-speed three-terminal semiconductor devices, particularly, the high electron mobility transistor (HEMT), the heterostructure bipolar transistor (HBT), and the hot electron transistor. The modeling of these devices requires a rigorous treatment of nonstationary transport phenomena, velocity overshoot, and ballistic transport, within the context of a two-dimensional Monte Carlo solution of the semiclassical Boltzmann Transport Equation coupled with the two-dimensional Poisson equation. The Monte Carlo method rigorously treats from first principles all of the essential physics of nonstationary transport. The model has been fully tested and calibrated through a series of "bootstrap" tests; prediction of bulk velocity-field profiles, two-dimensional mobilities and real space transfer effects. The NSF super-computer center in Pittsburg will be used to perform these calculations. Specifically, new pseudomorphic HEMTs and resonant tunneling emitter, hot electron transistors will be studied. It is expected that new, optimized geometries for high speed device operation will be developed.